Collaborative Research: Nonlocal Second Moment Upper Ocean Boundary Layer Modeling

The upper ocean boundary layer (OSBL) controls the vertical transfer of heat, mass, and momentum from the atmosphere to ocean interior, affecting water properties and influencing climate. Turbulent OSBL flows are not well resolved by ocean circulation models, however. This project will develop a new model for the OSBL, and a database of OSBL turbulence properties from existing Lagrangian float data will be compiled to tune and validate the model. This research has potential to improve physical and biogeochemical model predictions significantly across a wide range of space and time scales. The project will support an early-career investigator, provide training for a graduate student, and deliver educational outreach in local public schools.

Parameterization of the upper ocean boundary layer (OSBL) has been hampered by two obstacles. First, recent measurements and Large-Eddy Simulation (LES) comparisons suggest there are significant fundamental deficiencies in the physical assumptions of many schemes. Second, recent decades of detailed OSBL observations have had little impact on model formulation, presumably because the data and the dynamic scaling behavior it supports have not been presented to the modeling community in useful ways. This project will address these issues by 1) developing a new model for the OSBL which includes both local and non-local transports and is tuned to both observational and LES results; and 2) developing a database of OSBL turbulence properties based on ~25 years of Lagrangian float data to tune and validate the model and guide development and validation of other OSBL mixing schemes. The database will be distributed within the framework of the widely used community-driven General Ocean Turbulence Model effort.